Computability Theory and Algebraic Structures

The principal investigator and her students and collaborators use
computability theoretic methods to investigate various algorithmic
phenomena on countable mathematical structures. The project aims to
better understand how algebraic properties of structures interact with
the algorithmic ones. Topics of investigation include: complexity of
structures and their isomorphic copies, complexity of additional
relations on their domains, complexity and structure of partial and
total isomorphisms, and the correspondence between computability and
definability. The complexity is often expressed by computable
infinitary formulae, and measured by Turing degrees or by other
computability theoretic degrees. Since these degrees are not invariant
under isomorphisms, we investigate their spectrum, which consists of all
degrees in the isomorphism type of a structure. An important goal is to
relate the degree spectra of relations to the degree spectra of
structures by studying the so-called spectrally universal structures.
The project involves investigations in general model theoretic setting,
such as algorithmic versions of categoricity, but also more concrete
well-known classes of algebraic structures, such as commutative groups,
non-commutative groups, rings, fields, vector spaces. Another goal of
the project is to integrate computable algebra with algorithmic learning
theory in Putnam-Gold's framework of inductive inference machines, which
has so far been developed mainly for computably enumerable sets. This
study is also important in the philosophy of inductive reasoning.

In the 1930's, Turing, Goedel, Kleene and others developed the
mathematical theory of computability. Their results paved the way for
the invention of modern computers. Model theory, which emerged as a
distinct field in the 1940's through the works of Skolem, Goedel,
Tarski, Malcev and others, provides a rigorous framework for the notions
of language, meaning and truth. A model, a concept used in all of
sciences, describes a portion of reality by using a formal language to
express properties under study. Interaction of computability theory
with model theory, as well as other areas of mathematics, has resulted
in computable model theory and, more generally, in computable
mathematics. Goedel's incompleteness theorem is a striking early result
in computable model theory. While some mathematical constructions are
algorithmic, or can be replaced by algorithmic ones yielding the same
results, others are intrinsically non-algorithmic. Problems that can be
solved algorithmically are called decidable. Examples of negative
results in computable mathematics include the undecidability of the
Hilbert's tenth problem, and the undecidability of the word problem in
combinatorial group theory. Undecidable problems can be more precisely
classified by considering generalized algorithms, which require external
knowledge. Turing degrees, which play a significant role in this
project, provide an important measure of the level of such knowledge
needed. An important goal of the project is to use Turing degrees to
investigate structures of importance in other areas of mathematics.